CAREER: Theory and Application of Small-Sample Error Estimation in Genomic Signal Processing

NSF Proposal #0845407

Title: Theory and Application of Small-Sample Error Estimation in Genomic Signal Processing

P.I.: Ulisses Braga-Neto

Project Abstract

Genomic Signal Processing (GSP) is the engineering discipline that
studies modeling and statistical issues related to biological signals
measured by high-throughput technology, such as gene-expression
microarrays or protein-abundance mass spectrometry. Research in GSP
typically involve the discovery of reliable molecular markers for
disease diagnosis and prognosis, using pattern recognition or machine
learning approaches. Such approaches rely on the accuracy of error
estimation for classification and prediction. This is particularly
critical due to the small sample sizes that are common in GSP
applications. Novel robust small-sample error estimation methodologies
in GSP are needed in order to enable reproducible scientific discovery
that leads to genuine medical advancement.

This research has as its goal solving significant computational and
statistical problems that exist in small-sample error estimation.
Among the open problems that will be addressed are (1) to obtain exact
and approximate representations of the joint sampling distribution of
the estimated and true errors for linear continuous classifiers, which
will lead to better-performing error estimators and practical tools to
assess significance of results; (2) to study error estimation for
discrete classifiers, including the binary coefficient of
determination (CoD), using both analytical and complete enumeration
approaches; (3) to develop the methodology of bolstered error
estimation, addressing the application in high-dimensional spaces and
with adaptive kernels, with an emphasis on feature selection; (4) to
apply these error estimation techniques to the problem of biomarker
discovery for diagnosis and prognosis in cancer and infectious
diseases, in partnership with medical collaborators at Translational
Genomics (TGen), the Johns Hopkins Medical School, and the Oswaldo
Cruz Foundation, Brazil (FIOCRUZ).